Theoretical Nuclear Physics

This work addresses theoretical nuclear structure issues. It will use a theoretical model based on the symplectic group to study the microscopic origin of nuclear collective motions. the proposed explicit evaluation of tensor operator matrix elements can be useful in many areas of physics.